Postdoctoral Fellowship: MSPRF: Combinatorial Representation Theory and Combinatorial Algebraic Geometry

This award is made as part of the FY 2024 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Shiliang Gao is “Combinatorial Representation Theory and Combinatorial Algebraic Geometry”. The host institution for the fellowship is Cornell University and the sponsoring scientist is Allen Knutson.